Conference on Ergodic Theory with Connections to Number Theory; July 21-25, 2003; Corvallis, OR

Abstract: Conf on ergodic Theory: DMS0303593

Funding Proposal for a
Conference on
Ergodic Theory with Connections to Number Theory

This proposal funds a week-long
conference on `Ergodic Theory with Connections to Number
Theory' to be held July 21-25, 2003 on the campus of Oregon State
University. We expect some 50 participants, with six principal speakers.
The conference will emphasize the areas of: diophantine approximation;
Z^d-actions; and billiards.

Confirmed principal speakers are:
P. Arnoux (Marseille); V. Bergelson (Ohio State Univ.); M. Keane (Amsterdam);
H. Masur (Univ. Illinios at Chicago); K. Schmidt (Vienna); and W. Veech (Rice Univ.).
Participants will have the opportunity to give shorter talks.

Number theory has long provided motivation and tools for ergodic theory.
Recent results, many obtained by our principal speakers, include: the use of
diophantine approximation to give precise results on ergodic directions for
billiard flows; the use of ergodic Ramsey theory to clarify and generalize
classical results of diophantine approximation; and the demonstration of the
rigidity of the dynamics generated by commuting automorphisms of compact
groups.